Theoretical and Experimental Studies of Failure in Anisotropic Curved Layered Structure

The primary objective of this work is to establish and ambitious analytical and experimental program to understand and then to predict the failure mechanics and mechanisms of curved layered composites. Analytical studies will be directed towards (a) determining analytical elasticity solutions for the stress response of uncracked curved composites under general loadings, (b) predicting initial failure modes (interface of matrix cracking), failure locations based on proper failure criteria under specific critical loads, (c) determining stress singularities of curved interface crack between dissimilar cylindrically orthotopic or anisotropic media and of matrix cracking impinging on the curved interface. Finite element studies will then emphasize on (a) developing singular finite elements to investigate the stress fields near the crack tip corresponding to each failure mode for test specimens of practical dimensions. The element formulation will incorporate proper singular terms obtained from analytical study, (b) investigating the essential features of failure process in curved composites with emphasis on the role of shell curvature, (c) determining the mixed-mode fracture parameters K1, K11, and K111 in terms of various geometry parameters and loading conditions, (b) predicting fracture models and stable, unstable crack growth or crack arrest. Experimental data will be also used to develop and validate failure criteria as part of the proposed work. The analytical predictions, finite element results and experimental data will be collated and critically compared to provide a full understanding of both the failure behavior of curved composites and the predictive capability of various models.*** //